Physical Chemistry Workshop, University of Illinois, September 15-18, 1987

The reorganization of the NSF Chemistry Division has merged theStructural Chemistry and Thermodynamics Program and the ChemicalPhysics Program into a new Physical Chemistry Program. As aconsequence of the reorganization and the unique opportunitiesfor advances in the field, a workshop on physical chemistry willbe organized by Professors Jiri Jonas (Illinois) and Sandra C.Greer (Maryland). This workshop will not only review the varioussubfields, but will review current investments with the purposeof identifying areas of possible duplication or absence ofimportant work. It is anticipated that the results of this workshop will impactplanning in FY88 as Professor Jonas is a member of the ChemistryAdvisory Committee and expects to make preliminaryrecommendations at the fall meeting of the committee. The workshop organization will also benefit because Professor Greer was a rotator during the 1985.1986 academic year and thus understands the reorganization and has a good overview of the programs that have now been combined into Physical Chemistry.